NER: Feasibility Studies on ZnO Nanostructures And Their Device Applications

PROPOSAL NO.: 0103096
PRINCIPAL INVESTIGATOR: Lu, Yicheng
INSTITUTION NAME: Rutgers University New Brunswick
TITLE: NER: Feasibility Studies on ZnO Nanostructures And Their Device Applications

This proposal addresses the exploratory research on zinc oxide (ZnO) based nanoscale structures
and feasibility study of their device applications. ZnO is a multifunctional material possessing unique
electrical, optical, acoustical, and mechanical properties. Semiconductor ZnO has a wide and direct
energy bandgap (~3.3eV). ZnO can be grown at low temperatures, in contrast with the other wide
bandgap materials, such as GaN and SiC. Its ternary compounds, formed by alloying ZnO with CdO and
MgO, permit bandgap tuning from ~2.8 eV to ~4 eV. Doped ZnO ternaries can be made magnetic or
ferroelectric, extending its applications beyond the traditional semiconductor confines. In this exploratory
research, we will study growth mechanisms and conduct substrate engineering for selective growth of
ZnO nanotips and nanotip arrays on various substrates, including R-plane sapphire, Si, silicon-on-sapphire
(SOS), and GaN-on-sapphire. Feasibility studies of ZnO nanotip applications will focus on field-emission,
two-dimensional photonic bandgap (PBG), and fine instrumentation such as atomic force
microscopy and scanning tunneling optical microscopy. We will also explore the feasibility to form CdO
quantum dots in ZnO using the activated alloy phase segregation mechanism, which may be proved as a
viable alternative to the Stranski-Krastanov mechanism. These quantum dots have potential applications
in UV lasers and integrated UV optoelectronic chips. The proposed work will extend the research on
nanoscale structures and devices into the field of wide bandgap semiconductor nanoscale science and
engineering. The research and development of nanoscale structures in ZnO and its ternaries will lead to a
fundamentally new class of devices, which integrate multi-phenomena and posses unprecedented multi-functional
characteristics.